Collaborative Research: U.S. Crossroads—Connectivity of the North Atlantic Deep Western Boundary Current through the Subpolar-Subtropical Transition Zone

Recent observations of a decline in Atlantic Meridional Overturning Circulation (AMOC) transport at 26°N latitude have been attributed in part to overflow water density anomalies at the western boundary of the North Atlantic basin. Tracking down the upstream origin and pathways of these anomalies and having them realistically represented in numerical ocean models is key to being able to predict future AMOC changes. This research will measure the pathways of overflow waters with the deployment of eighty acoustically-tracked floats in the North Atlantic and virtual floats in a high-resolution model of the same region. The float measurements will fill a critical gap in observations needed for model evaluation and contribute new understanding of the pathways and processes impacting the properties of overflow waters as they transit from the subpolar to subtropical North Atlantic. Improved understanding and prediction of AMOC variability can provide important information relevant to U.S. weather, coastal conditions, and marine resources.

Most attention has to date been focused on Labrador Sea Water export and its impact on AMOC variability, revealing weak connectivity across the subpolar-subtropical boundary. Modeled particle trajectories suggest a greater connectivity for the deeper overflow waters passing through the transition zone via the deep western boundary current compared to Labrador Sea Water, but equivalent Lagrangian observations in overflow waters are lacking. This project will build on previous observational and modeling work with new float observations of overflow water pathways and new particle simulations using state-of-the-art, high-resolution, multi-decade simulations. Eighty acoustically tracked floats will be released in overflow waters in the deep western boundary current to measure their pathways through the transition zone and identify processes that lead to boundary-interior exchange. Orders of magnitude more modeled particle trajectories will be generated usin Hybrid Coordinate Ocean Model (HYCOM) North Atlantic simulations to amplify the necessarily limited float observations, test the sensitivity of overflow water pathways to model resolution and investigate decadal variability.